Undermixed Doubly-Driven Flows

PI: Whitehead
Proposal Number: 0081179

Funds are provided for an experimental laboratory study of the dynamics of partially mixed flows driven by both salt and heat fluxes. The study will perform a careful examination of the parameter space in which different states of such doubly-driven flows have been observed to exist and will determine the stability of these flow regimes within this space. Supporting theory will be developed. This information will be of significant value in studies of climate variability and estuarine circulation, as well as in the interpretation of paleo-oceanographic data sets.